Undergraduate Research in Radio Science

The PI will establish a summer program to involve undergraduate students in the research activities of the radio astronomy group at Cornell University. Undergraduate students will work directly with members of the Cornell Faculty and research staff on projects covering a range of disciplines in radio and radar astronomy. In addition to conducting individual research projects, the students will also participate in group activities such as seminars. Attempts will be made to encourage participation by students at small undergraduate institutions, by women and by minority students.